Critical points of variational integrals

Critical Points of Variational Integrals

Abstract of Proposed Research
Xiaodong Yan

This project is to study the regularity of critical points of multiple integrals in the calculus of variations; especially some of the integrands that arise from nonlinear elasticity. Also some questions that generalize well-known results in classical analysis. One project is to investigate conditions on the integrands that guarantee certain partial regularity of critical points. In particular the regularity of certain systems that are models in nonlinear elasticity will be studied. This will include both compressible and incompressible materials. Another project is to study the regularity and qualitative properties of the solutions of certain systems of nonlinear integral equations. These systems are closely related to the systems that arise in the Hardy-Littlewood-Sobolev inequality.

The questions to be studied in this project are important technical results in analysis and the calculus of variations. Any results would be of considerable interest as there has been much research on these, and related, subjects during the last twenty years. The problems in nonlinear elasticity may lead to insights into the behavior of exotic materials while the other problems may be of importance for some questions in geometry.